US Ignite: Collaborative Research: Cloud Computing and Software-Defined Networking Enhancements to Support Collaborative, Problem-based STEM Education

Innovative ideas are needed to improve the relevance of STEM education and student engagement. It is known that student motivation and engagement can be improved by challenging them with open-ended, real-world problems and having them work in multi-disciplinary teams. The proposed research will achieve these objectives and impart STEM knowledge and 21st century skills by connecting course content and assessments to deep STEM learning and real-world engineering problem solving. Using cloud-based software infrastuctures, students can use the proposed C3STEM environment to collaborate with their peers on knowledge intensive tasks, conduct joint experiments, and solve complex problems by decomposing them into smaller, more manageable tasks. This approach will improve the technological competence of students and help them to develop into global leaders.

The project will research, design and validate new technologies that will enable ubiquitous and collaborative STEM education. The team will design new software systems by exploiting the Cloudlet and Locavore patterns in conjunction with Cloud Computing. New techniques for Software Defined Networking (SDN) will be designed and validated to dynamically create and manage network bandwidth in support of the envisioned applications. Resource allocation, scalability and Quality of Service issues will be addressed in the integrated context of SDN blended with Cloudlets. The investigation will address insights and scientific foundations that inform new directions in Cloud Computing and Network Virtualization as applied to collaborative engineering problem solving. The team will design STEM curricular units using real-world applications, such as traffic flow in city streets and discrete manufacturing systems that are directed at high school and undergraduate students. The investigators will design, instrument, and validate next-generation test beds for remote access using multiple mobile devices and computing platforms for performing experiments and problem-solving by remote teams. For example, high school student teams in Nashville, TN will be able to collaborate with graduate and undergraduate students at Vanderbilt University and interact with students in Akron, OH while using a manufacturing test bed located at the University of Akron. The distributed team will be able to collaboratively collect real-time data from the test beds via mobile devices, program new behaviors, validate their designs and engage in solving complex problems of real-world significance.